SENSORS: Decision Making Using Sensor Network Data - Integrating Perception and Reasoning

The project will develop an integrated approach to decision making under uncertainty based on robust extraction of probabilistic spatio-temporal information from sensor network data, efficient management of collections of such information, dynamic situation assessment with the aid of these collections, and representations of decision problems about these situations in terms of partially observable Markov decision processes. This work will bring together recent advances in the fields of visual sensor processing and database technology for management of uncertain information.